Support Services for Summer Programs in Japan and Korea Programs (Task Order #165 Bender CPO 9596088)

9805850 Linsky The award provides contractor support to the INT/Japan and Korea Program for the Summer Programs in Japan and Korea Panel Review. This contractor support will consist of application processing, data entry, and panel support as determined by the Japan and Korea Program and defined in the submitted task description, and the process will include a quality assurance component to ensure the accuracy of the work performed. ***